RIA: Cost Effective CAD for Robust Design of Integrated Circuits using Artificial Neural Networks

Ilumoka A high proportion of future integrated systems will contain mixed analog/digital subsystems required to meet demanding quality specifications. CAD (computer-aided design) tools currently available for integrated circuit (IC) quality enhancement (or robust design) although effective are plagued by the problem of high simulation cost, the greatest part of which is due to circuit simulation and extraction of performance. This problem arises due to the fact that accurate prediction of circuit performance requires that ICs be modeled at a number of different levels of abstraction including process, layout, device and circuit levels. Furthermore, since current methodologies simulate several instances of the IC in order to investigate quality, the cost problem is compounded. To date, research efforts to reduce simulation costs have produced a number of approximation techniques which sacrifice accuracy for reduction in computational cost. Thus, although the cost problem is ameliorated, simulator output has significant error. Artificial neural networks (ANNs) provide a non- parametric method for mapping one set of data to another based on information established during an adjustment procedure called "training". Research is focused on the study of improved robust design techniques for MOSFET ICs which exploit the versatile mapping capability of ANNs.